BLOCK TRAVEL:INTERNATIONAL CONFERENCE ON ORGANIC NONLINEAR OPTICS I. TO BE HELD IN VAL THORENS, FRANCE, JANUARY, 9 - 13, 1994.

9305728 Kuzyk This proposal seeks partial funding for an international conference on the topic of organic nonlinear optics with meeting headquarters at Val Thorens, France. NSF funds are requested for travel support of U.S. invited speakers and Ph.D. students. The purpose of the meeting is to bring together top researchers-whose expertise spans material design, material characterization, device fabrication, and integrated device architectures-to the intimate setting of a small mountain town to discuss and assess progress in the field. This upcoming conference is motivated by a small NSF-supported conference that was held in Pullman, Washington in the summer of 1992. At the demand of workers in the field who feel that such a small forum is lacking, a future series of such conferences are planned in 18 to 24 month intervals and will be held in those countries that are active in this field. ***